CAREER: Assessment of Open-Source Software for High-Performance Computing

CCR-0132673
CAREER: Assessment of Open-Source Software for High-Performance
Computing
Edward B. Allen, P.I.

ABSTRACT:

This project will implement an integrated program of empirical
software-engineering research and an exemplar of education in
empirical methods for undergraduate and graduate students in
software engineering. This will be achieved through research
focused on assessing the quality of open-source software for
high-performance computing, and through development of relevant
courses and teaching modules.

High-performance computing is the platform of choice in many fields
of science and engineering that are critical to modern society.
Off-the-shelf software packages in this category include tools to
implement mathematical models, and middleware to manage parallel
and distributed computation. The open-source approach of software
development is becoming increasingly attractive in this field.

Research activities of this program will employ empirical analysis
methods to find ways to assess the quality of open-source software
for high-performance computing, enabling scientific and engineering
users to make better informed choices. Case studies of selected
software products will validate the practicality and usefulness of
obtaining such quality assessments.

Software-engineering education in America is largely lacking
instruction in empirical analysis methods. A spectrum of teaching
materials targeted toward this need will be developed. Research
results and instructional materials will be disseminated through
publications and the NSF-sponsored Center for Empirically Based
Software Engineering (CeBASE).